Nonlinear System Design: Adaptive Feedback Linearization with Unmodeled Dynamics (Supplement: NSF-UC-NASA Workshop onNonlinear Control, Santa Barbara, CA., April 5-7, 1990)

The proposed study of geometric-asymptotic properties of nonlinear dynamic systems with parametric and dynamic uncertainties is aimed at the development of a design methodology for robust adaptive feedback linearization. An analysis of the effects of uncertainties (Section 3) will reveal whether nonadaptive state-feedback (Section 4) or observer-based (Section 5) designs will guarantee robustness, and when an adaptive feedback linearization approach (Section 6) is more appropriate. New problem formulations in each of these areas motivate the development of a unified geometric-asymptotic-adaptive methodology. It is shown that the phenomenon of controller and/or observer peaking, which has been noticed but not thoroughly studied in the linear system theory, is of fundamental importance for robust nonlinear feedback design. Among the dangers of nonadaptive high-gain loops is a possible interference of peaking with uncertain nonlinearities that can result in a drastic decrease of the stability region. A fuller understanding of geometric-asymptotic properties will show when this type of interference can be avoided. Adaptive parameter updates reduce the effects of parametric uncertainties and avoid the need for high-gain loops. At present they are restricted to systems with known nonlinearities, when a "certainty-equivalence" form of feedback linearization is applicable. A crucial trade-off between adaptive and nonadaptive designs is to be made vis-a-vis unmodeled dynamics, which are known to cause instabilities in some linear adaptive systems. Robustness of nonlinear adaptive designs will be improved by algorithm modifications based on current research in linear adaptive control.